Adapted Wavelet Algorithms

ADAPTED WAVELET ALGORITHMS
NSF DMS 0072234
Mladen Victor Wickerhauser
Department of Mathematics
Washington University in St. Louis

Using wavelet packets and other signal-adapted waveforms,
we build cheap and efficient `best basis' representations
for complicated digital signals and images. Used on very
large datasets, these reduce the complexity of processing,
transmitting, and storing data. Some near-term applications
suggested by our prior work are:

- fast approximate singular value decomposition, and fast
approximate discrete Hilbert transforms;

- signal segmentation through local spectrum change
detection;

- fast discrete atomic decomposition for feature detection
and adapted data compression.

The long-term goals of this research program are:

- understanding, controlling, and constructing
signal-adapted waveforms;

- high-performance computing with adapted waveforms.

We can achieve these goals through a deeper understanding
of some discoveries from our prior supported research.
We must know, using certain signal-adapted representations,

- can we measure information content more accurately, and
thus reduce the storage size of a signal or image?

-can we lower the fundamental limit of automatic
detection of signal features?

- what algorithm modifications are needed to obtain
adapted waveforms with additional desirable properties?

Our work is used to automate or improve tasks such as:
segmentation of continuous speech into syllables for speech
recognition; analysis and compression of seismic petroleum
exploration data; fingerprint image compression that
preserves features needed for automatic identification;
de-noising and preconditioning of radar signals before
automatic feature detection and classification; and
speedups of certain basic matrix computations. Our methods
include: devising new high-performance algorithms to
compute certain quantities; running numerical experiments
and simulations to evaluate their range of usefulness;
and proving mathematical guarantees for these algorithms
such as maximums for running times with minimums for
accuracy.